Human Capital, Social Partitions, Cities and Growth

This project will study how human capital externalities lead individuals to coalesce into groups and will show that this self- partitioning sheds light on a number of important issues: economic segregation, the effectiveness and costs of education, the organization of cities, ghettos, labor productivity and long term growth. The project consists of three parts. The first one will develop a model of a city composed of several communities, formalizing the links between residential choice, skills acquisition, and overall productivity. It will show how local externalities in human capital investment induce self- segregation by occupation, and how this affects the composition of the labor force. In particular it can lead other areas to drop out of the labor force and become unproductive "ghettos." The analysis will show that underemployment is more extensive, the easier it is for high-skilled workers to isolate themselves from others, but that at the same time their attempts to do so may be self- defeating. The second part will extend the analysis to two other issues concerning the structure and productivity of cities. The first is the value of local diversity in land uses and its tendency to self- destruct under market pressures. The second is the recent exodus of firms, hence jobs and taxes, out of central cities into suburbs, and its implications for employment and income distribution. The third part will study the implications of group formation for long term macroeconomic growth. It will add to recent models of endogenous growth by recognizing that individuals can choose the group from which they receive human capital spillovers (school, neighborhood, city, state), although at a price: land and other rents on non-reproducible factors reflect the quality of the externality which group membership confers.